Collaborative Research: Conference: JUNO4 Workshop on Networks for Next Generation Smart Society Applications

The US and Japan have a >10-year collaboration on the Japan-US Networking Opportunity (JUNO) Program. This project will support a joint US-Japan workshop to elucidate current challenges in networking research. The workshop will be open to the community and the workshop output will be captured in a publicly-available report.

Workshop themes under consideration include:
1) Augmented Network Architectures (Network + X Architecture): The goal of this thematic area is to explore the integration of advanced capabilities, such as computing and artificial intelligence (AI),into the current architecture of wireless and wired networks.
2) Extremely Advanced Networks for Wired and Wireless Communications: The goal of this thematic area is to investigate advanced networking capabilities for enabling wired and wireless communications at scale and with maximum efficiency.
3) Use Cases and Associated Networks: The goal of this thematic area is to exploit emerging use cases that can leverage the capabilities of the first two thematic areas.